Geometry of Integrable Systems and Submanifold Geometry

The proposal of Chuu-Lian Terng contains three
projects. The first project is joint with Karen
Uhlenbeck (University of Texas at Austin). Terng and
Uhlenbeck have collaborated for the past several years
to give geometric interpretations and applications of
analytic and algebraic constructions in integrable
systems. They propose to continue their investigation
of geometric aspects of integrable systems, Virasoro
actions and topological conformal field theory. The
second project is on submanifolds in symmetric spaces
whose Gauss-Codazzi equations are integrable systems.
Terng has made several contributions to this area when
submanifolds lie in a space form, and she plans to
continue the research for the symmetric space case.
The third project is joint with Gudlaugur Thorbergsson
(University of Koln). Terng and Thorbergsson have
made contributions to the theory of isoparametric
submanifolds in space forms and equifocal submanifolds
in symmetric spaces. In this project, they propose
to study the geometry of submanifolds in complex and
quaternionic n-space whose U(n) and Sp(n)-invariants
are constant in various senses. The success of this
project should give better understanding of
submanifold geometry in Hermitian and quaternionic
Kahler symmetric spaces.

The theory of integrable systems has deep relations
with mechanics and dynamics, applied mathematics,
algebra, theoretical physics, partial differential
equations, algebraic geometry, and differential
geometry. It has also been used in other sciences.
For example, (1) the sine-Gordon equation, which is
the Gauss-Codazzi equation for constant negative
Gaussian curvature surfaces in 3-space, also arises in
plasma physics; (2) the non-linear Schrodinger
equation models the propergation of wave envelope in
optic fiber. Success of the proposed projects will
give better understanding of the structure of
integrable systems and their geometrizations.